Manifolds and calculus of functors

Abstract

Award: DMS-0708601
Principal Investigator: Thomas G. Goodwillie

All of the proposed research is connected with the calculus of
functors in its various forms. First, the main results of
homotopy calculus will be extended to a natural and high degree
of generality. Geometric language will be used to develop the
analogy with ordinary differential calculus, so that a suitable
homotopical category gets something like tangent and cotangent
spaces, spaces of tensor fields, connections, differential
operators, and so on. The language should be useful both for
clarifying the ideas and for suggesting new directions. Second,
the derivative of algebraic K-theory will be investigated in a
general setting. Third, the part of manifold theory which in some
sense comes next after stable pseudoisotopy (it could be called
metastable pseudoisotopy) will be explored from the calculus
viewpoint. Its derivatives will be studied by methods analogous
to the Hochschild and cyclic homology methods that were relevant
to the stable theory; where loops in a manifold were involved,
now there should be maps of rank two graphs into the manifold. In
addition to working out the metastable analogue of cyclic
homology, there is the more fundamental question of seeking to
understand the metastable phenomena in non-manifold terms as
Waldhausen K-theory does for the stable theory, and calculus may
hold clues to this. There is a sequence: (0) homotopy theory,
where calculus leads to trees, (1) algebraic K-theory, where
calculus leads to circles, and (2) metastable theory, where
calculus leads to rank two graphs. One thing to be worked out is
the relevant kinds of interactions between all these kinds of
graphs in a manifold.

Functor calculus involves extremes of abstraction, but it has
down-to-earth roots. It is an organizing principle named for
resemblance to the ordinary calculus of Newton and
Leibniz. Sometimes a fact about numbers is best proved by placing
it in a context where the number is part of a huge family of
numbers -- a numerical function. Properties of the function can
lead, by general theorems of calculus that at first seem like
magic, to a computation of the number. The story here is similar:
sometimes a fact about some mathematical entity -- not a number
now, but perhaps a geometric object of some kind -- is best
proved by placing it in a context where the object is part of a
huge family of such objects -- a functor -- and using some magic
of more recent vintage. One area of application of functor
calculus is manifold topology. Another is homotopy theory. A
manifold is a kind of mathematical system involving many
variables. These are ubiquitous in science and
mathematics. Manifold topology studies such systems for their own
sake, treating them as geometric objects; an N-variable system is
viewed as an N-dimensional object. Homotopy theory studies
manifolds and other objects from a point of view in which a great
deal of information is ignored, leaving only the coarsest
features to consider. This change in viewpoint is a powerful
idea, because this process of distillation leads to conceptual
clarity and new methods. Besides being a key tool in the study
of manifolds, homotopy theory is a branch of topology in its own
right. Thus geometry grows, surprisingly and naturally, as the
years go by. In functor calculus it becomes possible in a sense
to view all of homotopy theory as a geometric object.